Rigidity Phenomena for Higher Rank Abelian Actions

Proposal Number: DMS-0140513
PI: Boris Kalinin

ABSTRACT

The proposed research lies at the area of smooth dynamical
systems and ergodic theory. The main goal of the project is
to investigate "higher rank" dynamical systems. In
particular, the investigator will study actions of discrete
and continuous higher rank abelian groups, which are natural
generalizations of diffeomorphisms and flows on smooth
manifolds. Higher rank dynamical systems appear naturally in
the study of various geometric and algebraic objects. The
prime examples of these systems include hyperbolic and
partially hyperbolic actions by automorphisms and
translations on compact cosets of Lie groups. Using dynamical,
analytic, and group theoretic methods the investigator
will study rigidity properties of such systems. The examples
of possible rigidity properties include description of
invariant measures, regularity of measurable isomorphisms,
and existence of smooth isomorphisms to the algebraic models.

Dynamical systems and ergodic theory is a relatively new field
of mathematics which studies the evolution of physical and
mathematical systems over time, for example planet systems,
air and fluid flows. This field originated from the classical
studies in differential equations and celestial mechanics.
Dynamics and ergodic theory introduced new mathematical tools
into these areas of physics and mechanics, such as the study
of the qualitative behavior in the long run as well as various
analytic and probabilistic methods. New ideas and concepts in
dynamics, such as fractals and chaos, have not only affected
the field itself dramatically, but also fundamentally changed
our understanding of the world. The influence of the studies
in dynamical systems nowadays goes as far as meteorology,
biology, and computer science.